Geometry and Arithmetics

The Department of Mathematics at the University of Miami will host a
Winter Conference and School in December 2005 entitled "Arithmetic,
Algebraic and Symplectic Geometry". The conference will focus on
promotion and incorporation of recent advances in higher dimensional
algebraic geometry into arithmetic and symplectic research directions
and the creation of new bridges between projective geometry and
foliation theory, between singularity theory and reconstructive Galois
problems and between the geometry of coherent sheaves and symplectic
topology. The award will support junior researchers and graduate
students from U.S. institutions and will enable the dissemination of
geometric techniques among the new generation of young scientists.

The conference will address difficult classical questions about the hidden symmetries of the physical world, the large scale structure of space-time and the properties of matter at
high energies. This activity aims to advance our understanding of the
mathematical methodology necessary to handle such questions and to
produce results applicable in stringy physics, soft condensed matter theory
and mathematical biology.